An Integrated Natural Resources Management, Data AcquisitionAnalysis and Presentation System for Undergraduate Teaching

This project is designed to provide Natural Resources Management students with a sequential program of computerized data collection, monitoring, analysis and presentation of synthesized resource and climatic information. Implementation of this program dramatically improves the Natural Resources Management curriculum by providing state-of-the-art computer equipment, and the opportunity for "hands-on" application of resource management principles with "real-time" analysis and interpretation. Equipment being purchased through this project include geographic information system hardware (including a digitizer, a color terminal, and plotter), hand-held data logger computers, micro-computer workstations, and a computer projection system for classroom demonstration. This project is vital to the Natural Resources Management curriculum as it provides the opportunity for undergraduates to be exposed and to develop a working understanding of today's technology as currently used by professionals in both industry and government agencies. The grantee institution is matching the NSF award with an equal sum obtained from non-Federal sources.